Support for Undergraduate Computer Assistance for Workshop on SSC Detectors

This REU grant will support two undergraduate students who will staff the computer facilities for the Workshops on SSC Detectors to be held at the University of Colorado in July.